Distributions and Representations: The Kirillov Conjecture, Special Values Of L-functions and Fourier-Jacobi Models

The investigator and his collaborators study several problems in the
representation theory of reductive groups and its applications to number
theory. The first problem is to prove the Kirillov conjecture which states
that every irreducible unitary representation of Gl(n,R) or GL(n,C)
remains irreducible when restricted to a certain subgroup. The second
problem is to find a formula relating fourier coefficients of half
integral weight modular forms with special values of L-functions of
integral weight modular forms. This formula generalizes a classical
formula of Kohnen and Zagier and is different from a formula given
by Waldspurger. Other problems which are considered are the study of
Bessel distributions and Bessel functions for quasi-split groups and the
study of Fourier Jacobi models for representations of symplectic and
unitary groups. The line of attack on these problems is to study certain
invariant distributions and the spherical functions associated to them via
regularity theorems.

Unitary representations of semisimple Lie groups were studied by the famous
physicists Wigner and Dirac among others in an attempt to understand and
develop the theory of quantum mechanics. Later, mathematicians such as Gelfand
and Harish Chandra developed and rigorized this beautiful theory. Many
applications were found to physics, geometry, number theory and other
fields. The purpose of the current proposal is to advance the understanding
of representation theory and to continue to explore the connections
between representation theory and number theory.